Collaborative Research: Tree-Ring Based Records of Temperature and Glacial Fluctuation Spanning the Past Two Millennia, Prince William Sound, Alaska

Abstract

The primary objective of this research is to develop a continuous tree-ring chronology spanning the past 2000-years from living and subfossil wood around Prince William Sound, southern Alaska. This chronology will provide an annually resolved record of North Pacific climate for the past two-millennia. In addition, development of the long tree-ring record will involve cross-dating of trees killed by advances of Columbia and other glaciers around Prince William Sound; interpretation of the dates of tree germination and death on these glacier forefields will enable glacier fluctuations in the region to be reconstructed with decadal precision.